MS Program in World Class Manufacturing Engineering

9417435 Jain ABSTRACT UCSD MS Program in World Class Manufacturing Engineering The University of California, San Diego proposes to create a 2-year MS Program World Class Manufacturing Engineering with a strong international and information systems focus. In partnerships with ALCOA Electronic Packaging, Hewlett-Packard, Hughes Aircraft, and TITAN Linkabit, it is targeted toward displaced defense engineers, particularly women and minorities. Aiming to take advantage of manufacturing and management strengths overseas, the program has a unique emphasis on foreign language and culture learning (approximately 50% of the students) and includes a 9-month internship in a manufacturing firm in the U.S. or abroad. With good support from institutions with strong international studies program, it expects a steady state of 30 students per year with expansion in later years to feed in undergraduates. ***